NSF/AWM Travel Grants for Women in the Mathematical Sciences

The Association for Women in Mathematics will continue the program of
awarding travel support for women mathematicians to attend domestic or
foreign research conferences. The proposed level of funding will allow
approximately 75 grants, in amounts from $250 to $1,500, to be awarded
over a three year period.

Additional funds are requested to establish a pilot program of awards
to women mathematicians for travel, to work with particular
individuals in their research area for brief periods of time. The
proposed level of funding for these mentoring travel grants would
allow three to six grants per year of $4000 each over a period of 3
years.

Both programs are intended to enhance the research capability and the
visibility of women mathematicians, to expand the influence of their
work, and to increase their ability to inspire women at less advanced
levels to pursue (or continue) careers in mathematics, in the
sciences, or in other fields requiring substantial mathematical
training. Both programs seek (directly or indirectly) to make the
presence of women at places where research is being reported or done a
normal professional expectation, and to mitigate the persistant
problem of having too few women speakers at many mathematical
conferences. Both programs should be important tools for the retention
of women mathematicians in academic life. To assess the impact of this
program, and to see if there are ways the program could be improved, a
study will be taken of the effectiveness of past NSF grants to AWM for
travel grants.